A Unified, Single System Approach to Undergraduate Biochem- istry Training

This award provides funds to the departments of Chemistry and Biochemistry which will help purchase equipment that will expose the undergraduate students taking biochemistry to laboratory exercises which will include computer-aided instruction of recombinant DNA techniques. A cohesive series of laboratory experiments will be developed which will provide a student with practical exposure to a) the fundamental techniques in recombinant DNA research, b) the fundamental techniques of protein chemistry and c) the use of computers as an integral part of biochemical experimentation through the in-depth exploration of a single biological system. The grantee is matching this award with non- Federal sources.